Influence of interfacial stress on the stability of epitaxial films

Fried
0706460

Epitaxially-grown thin alloy films are essential components
in many nano- and microscale devices used in the electronics and
other industries. Unfortunately, the growth of planar strained
films is susceptible to instabilities. These instabilities are
often manifested by the formation of surface ripples, surface
cusps, and island-like mounds such as quantum dots and quantum
wires. The demand for films with precisely tailored micro- and
nanostructures has led to an extensive literature concerned with
morphological instabilities during the epitaxy of thin alloy
films. To date, attention has focused primarily on instabilities
that arise from a mismatch in lattice parameters between the film
and the substrate and surface diffusion. However, interfacial
stress, which may strongly influence the formation of surface
patterns, has received almost no attention. Moreover, because of
the geometric complications associated with the description of
evolving surfaces in three space dimensions, studies of
growth-stress interactions have thus far confined attention to
two-dimensional theories, wherein the interface is a curve.
Additionally, no theory yet accounts for the influence of surface
stress on phase segregation and related pattern formation,
processes that occur during epitaxy. In this project, the
investigator and colleagues:
1. Perform stability analyses and numerical simulations
designed to explore the role of surface stress in the stability
of epitaxially growing films.
2. Extend the existing two-dimensional theory to three space
dimensions.
3. Develop a theory that describes the interaction of growth
and phase segregation during the epitaxy of alloys.

The investigator and his colleagues develop and analyze
mathematical models, and carry out numerical simulations, of the
behavior and characteristics of epitaxially grown thin films. An
increased understanding of the morphological stability of these
films allows for progress and innovation in a variety of
strategically important applications. For instance, in the
electronics industry, epitaxially grown multi-layers have been
used to increase the storage capacity of hard drives and are now
being studied for possible improvements. Progress rests directly
on the ability to control small-scale features that form during
growth. Another compelling example of the importance of
epitaxial films is provided by recently proposed hybrid
organic/inorganic devices capable of detecting airborne
contaminants. These devices combine a monolayer of sensing
molecules on a semiconductor transducer grown via molecular beam
epitaxy. A precisely tailored surface structure is necessary to
ensure that the sensing molecules adhere correctly to the
transducer and perform reliably. Epitaxial films also have
potential in the development of optical semiconductors for
applications such as variable wavelength lasers. The devices
have a wide range of potential applications, including the
detection of toxic gases from vehicle exhaust, factories,
accidents, fires, natural disasters, etc. With a variable
wavelength laser, it is possible to shorten measurement times
from 1-2 minutes to 1 second, allowing for more rapid containment
and evacuation during emergencies.